History of Science Interpretive Materials and Exhibits

The New York Hall of Science and the Brooklyn Historical Society will develop an interdisciplinary set of Exhibits, classroom materials and activity kits about the history of commercial penicillin production. The materials will be appropriate for social studies, health and life science classes in grades 4 through 7. The purpose of the exhibits and materials is to incorporate the perspective of the history of penicillin into local science teaching and to incorporate a scientific perspective into local history teaching. The proposed project links science, history and the history of science and technology by setting scientific facts and events in a meaningful historical context. The project will use this mix to enhance curriculum of both history and science in the New York region. The New York Hall of Science annually serves 140,00 school children on class trips and has a strong commitment to teacher training. The Brooklyn Historical Society annually serves 20,000.